Collaborative Research: Reconstruction of Paleogene Alkenone-Based EP Records

Summary: This objective of this study is to provide estimates of long-term changes in atmospheric carbon dioxide concentrations from the Eocene through the Oligocene. The study will utilize carbon isotope measurement of alkenones and carbonate microfossils along with oxygen isotope measurements in carbonate microfossils. Measurements will be done on 6 discreet time slices representing the early, middle, and late Eocene and the early, middle and late Oligocene. Sample resolution will be approximately 250 to 500ky. In addition records will be established prior to and following distinct climatic episodes such as the Eocene/Oligocene transition and the apparent rapid deglaciation at the end of the Oligocene.